PostDoctoral Research Fellowship

This award is made as part of the FY 2023 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to David Palmer is “Active Topological Defects in Morphogenesis: Beyond Nematics". The host institution for the fellowship is Harvard University, and the sponsoring scientist is L. Mahadevan.